Determination of Earthquake Source Parameters from Waveform Data for Studies of Global and Regional Seismicity

The proposed continuation of global and regional studies of earthquake source mechanism using waveforem inversion will cover the following topics: 1. Continuation of the centroid-moment tensor (CMT) analysis of current events using GDSN, and other - as available - data, with the results sent to the USGS on a monthly basis and submitted quarterly for publication in the Physics of the Earth and Planetary Interiors. 2. Utilization of the data from the High-Gain Long-Period (HGLP) network operating between 1972 and 1976; this was the first global digital network and little use has been made of it; will determine station responses and sensitivities; permanent storage on the optical media (WORM type discs); 3. CMT and very broad bank (VBB) analysis of the HGLP data for selected events between 1972 and 1976; this period is characterized by many large earthquakes lacking, so far, proper analysis; 4. Systematic search for events with a statistically significant non-double couple component; it is highly likely that there are events which have an unusual source mechanism: two events near Torishima Island, south of Japan and three events on Iceland have mechanism that appear to be consistent with being caused by magma injection. ***